Direct Measurement of Strain-Rate Dependent Constitutive Relations for the Compression of Clay

CMS-9622644 Title: "Direct Measurement of Strain-Rate Dependent Constitutive Relations for the Compression of Clay" co-PI's: Gerald A. Leonards and Patrick J. Fox, Department of Civil Engineering, Purdue University The objective of the proposed research program is to provide definitive experimental data to resolve long-standing issues of strain rate effects during the process of consolidation in clay. Novel experimental techniques will be applied to measure the time-dependent and time- independent components of compressibility both during and after the consolidation process is completed, without the need for analytical interpretation of the test results. Undisturbed soils, known to be sensitive to strain rate effects, will be tested using: 1) a fixed-ring consolidometer specially treated for low sidewall friction, and 2) a Ko-triaxial cell modified to provide essentially one-dimensional strain under conditions of zero side friction, using a flow-pump volume control system. Local values of void ratio and effective stress will be measured directly. Large ranges in strain rate will be investigated by testing samples of different thickness. Redundant experiments will be used to establish that the results are free from bias due to minor departures from zero side friction in one case, and from zero lateral strain in the other. With the basic constitutive relations obtained from direct measurement, predictions of pore water pressure dissipation in incremental loading tests, and build up of pore water pressures in constant rate of strain (CRS) tests, will be compared with those using replicate specimens from block samples. The results of this study will have a fundamental bearing on how consolidation concepts are taught, and on how they are applied in practice.